Gauged Gromov-Witten theory and holomorphic quilts

Abstract

Award: DMS-0904358
Principal Investigator: Christopher Woodward

The PI will carry out projects on functoriality for Lagrangian
correspondences in Fukaya-Floer theory and functoriality for quotients
in Gromov-Witten theory. The first group of projects will have
applications in Gromov-Witten theory and ``cohomological'' mirror
symmetry, that is, in the sense of Givental etc. With F. Ziltener and
his former postdoctoral advisee E. Gonzalez he will investigate
functoriality for Gromov-Witten invariants under the symplectic
quotient construction. Potential applications include invariance of
Gromov-Witten invariants under symplectic birational equivalence, to
cohomological mirror symmetry for complete intersections of general
type. With K. Wehrheim and his former student S. Mau the PI will
study functoriality of Lagrangian correspondences in Floer-Fukaya
theory. Applications include symplectic definitions of non-abelian
Floer homology for tangles and arbitrary three-manifolds, possible
generalizations of Khovanov homology and categorification of quantum
groups. These projects will have applications in homological mirror
symmetry and low-dimensional topology. Some of the projects have a
graduate education component, and the PI also proposes several
undergraduate research projects.

Overall the research carried out under this grant will advance the
understanding of symplectic geometry, which is the mathematical
language for classical dynamical systems, and the relationship between
gauge theory, representation theory, and quantum physics. Gauge
theories arise naturally in a number of physical settings, such as
electromagnetism. The first part of the project concerns certain
gauge theories with an addition "non-linear" field taking values in a
classical phase space, which have been substantially studied in the
physics literature in the linear case under the name "gauged sigma
models". The second part of the project concerns the structural
properties of "Floer-theoretical" invariants which have been
extensively studied in relation to dynamical systems in recent years.